U.S.-Hungary Research on Peptide Conformation (Biophysics)

The primary objective of this U.S.-Hungary cooperative research project between Dr. Gerald Fasman of Brandeis University and Dr. Miklos Hollosi of Eotvos Lorand University, Budapest, is to synthesize and study the conformation of an important, but complex and little understood class of compounds: glycopeptides and phosphorylated peptides. Joint efforts should yield needed information about the effect of sugar residues on peptide conformations. Characterization of the conformational features of relevant model peptides could be of significant benefit in understanding the action mechanism of both glycoproteins and phosphoproteins which play essential roles in numerous biological processes. This project in biophysics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.